Student Rehabilitation Engineering Projects

9222322 Knapp This award will fund Undergraduate Design Projects to develop custom devices for persons with disabilities. This group will work with therapists and patients at a rehabilitation hospital which focuses on physical disabilities. Ten projects per year will be undertaken by the groups and reports on the completed projects will be included in a publication that will detail the projects completed at all institutions participating in this program. This type of experience is important since not only will it provide meaningful projects for the engineering students to complete as part of their education, but it will also benefit a population where customization is usually required of many rehabilitation devices. ***